WORKSHOP: Recruitment and Retention of Women of Color in Political Science to Improve Scholarship and Teaching, San Francisco, CA, September 2015

General Summary

Research demonstrates that women of color face barriers such as lack of mentorship, financial resources, and significant familial responsibilities in their pursuit of higher education and subsequent careers in political science. Political science is one of the most male and Anglo dominated fields of study in the social sciences. Descriptive representation within the academic profession is important to perceptions of legitimacy, service to students, and development of knowledge. The goal of the conference is to provide attendees the necessary skills and networks to enter the academy, successfully achieve tenure and sustain their careers thereafter. This workshop brings together scholars from different universities, at different stages in their careers, to deepen intellectual engagement and to build coalitions that support excellence in diversifying the political science profession.

Technical Summary

Descriptive representation within the academic profession is important to perceptions of legitimacy, service to students, and development of knowledge. The goal of the conference is to provide attendees the necessary skills and networks to enter the academy, successfully achieve tenure and sustain their careers thereafter. This workshop brings together scholars from different universities, at different stages in their careers, to deepen intellectual engagement and to build coalitions that support excellence in diversifying the political science profession. The workshop includes an opening plenary session that focuses on the development of intersectionality work in the discipline and a discussion of the discipline and the role of women of color therein. It also includes a series of breakout sessions that focus on various aspects of academic development. The workshop will facilitate deep mentoring by pairing graduate students, junior, and mid-career participants by interest, with structured one-on-one mentoring time embedded into the schedule.